Fundamental Properties of Eclipsing Binary Stars

Popper and a graduate student will analyze many years' worth of photographic spectra of binary stars in order to determine stellar masses and other stellar parameters. The mass of a star determines nearly all of its characteristics including its size, temperature, and lifetime. Observationally, stellar masses can be obtained when two stars orbit about each other, each attracted by the other's gravity. Popper will analyze a large collection of photographic spectra of binary stars in order to extract masses and other fundamental parameters.